NSF PRFB FY23: How do endocrine-molecular mechanisms evolve when parental strategies diverge? Insights from stickleback fish ecotypes

This action funds an NSF Postdoctoral Research Fellowship in Biology for FY 2023, Integrative Research Investigating the Rules of Life Governing Interactions Between Genomes, Environment, and Phenotypes. Parental care is critical for offspring survival, and thus, the parents’ reproductive success. However, as animals form new populations, environmental pressures might change in ways that also change parental strategies. For example, new populations may no longer need to protect young as extensively from predators, or may have access to new resources, such as nesting material that protects or nourishes young. Most research on the evolution of parental behavior compares species that split from each other millions of years ago. However, we know little about how natural selection shapes parental behaviors when populations are just starting to differentiate. This research will examine how parental care behaviors have been evolutionarily lost in a new population of three-spined stickleback fish (Gastereous aculeatus), a species in which fathers typically care for young. Alogether, this project will provide insight into how environmental changes, including those caused by humans such as climate change, may lead to changes in parental behavior and animal reproductive strategies.

This research will examine how natural selection has shaped endocrine and behavioral phenotypes in recently-diverged populations of stickleback by (1) comparing differences in neural hormone sensitivity in the brain and (2) hormone production machinery in the gonads (i.e., enzymatic pathways) across breeding stages, and (3) using cutting-edge transgenic tools to functionally test links between genotype and behavioral phenotype in both populations. With this integrative and comparative approach, this research will uncover how novel behavioral strategies emerge both within individuals and between populations at microevolutionary timescales. The fellow will receive training in current bioinformatic analysis and functional neurogenomics using transgenics. The fellow will also contribute to broadening participation of underrepresented groups by cultivating support for mothers/parents in science, including at scientific conferences. The fellow will also mentor community college students, a population often excluded from undergraduate research, through an established NSF Research Experiences for Undergraduate program. Finally, the fellow will contribute to infrastructure for scientific research by leading community trainings in open science, reproducibility and data management.